Computer and Information Science and Engineering (CISE) Research Instrumentation

A 32 - node hypercube multi computer for researchers at the University of Southern California for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Intelligent robotics and control Medium-to-large grain distributed artificial intelligence (DAI) Computational neurobiology and neural computing Computer vision and image understanding Parallel computer architectures for AI